Buoyant Coastal Current Dynamics over a Slope

0095059/Helfrich

This project addresses the dynamics of buoyant coastal plumes of the
sort produced by fresh-water river discharge. The main goal is to
provide a quantitative description of buoyant coastal currents over a
sloping bottom. The structure of such currents will be explored with
a combination of analysis of existing observational data, laboratory
experiments and numerical modeling. Existing theoretical estimates of
the width of the current, the depth of the offshore edge, and the speed
of advance of the nose of the current will be tested. The observational
data are from an experiment in the Chesapeake Plume. The laboratory
data will come from experiments in a rotating tank. The numerical model
is a version of the Princeton Ocean Model (ECOM3d).